Mounds at Moundville: Development of Public Architecture at a Large Missippian Ceremonial Center

With support from the National Science Foundation, Dr. Vernon Knight will continue his archaeological research at the site of Moundville. Located near the Black Warrior River in Alabama this site marks one of the highest cultural achievements of pre- Columbian Native Americans. It consists of a large number of mounds arranged in roughly symmetrical order, many containing tens of thousands of cubic meters of fill. Archaeological evidence indicates that these structures, which were likely built over extended periods of time contained religious structures at their tops and also served as burial chambers. Several have yielded large series of skeletons and burial goods. Of central importance is not the structures themselves but the nature of the social organization which made them possible. To construct such massive earthworks requires a social and political organization which can mobilize a large amount of labor for long periods of time. Dr. Knight's research should provide insight into this underlying social structure. Building on past work at the site Dr. Knight will conduct two seasons of excavation. Using standard archaeological techniques he will cut trenches into a number of mounds. The materials collected will allow him to date the construction (or multiple construction episodes) of each. On this basis estimates of person power over time can also be made. Dr. Knight will attempt to determine the functions of each structure and how these also may have changed over time. This research is important for several reasons. It will provide data of interest to many scientists. It will increase our understanding of how, at a technologically simple level, complex societies develop and are maintained. It will also assist in the training of graduate students.